SCREMS: Distributed Environments for Stochastic Computation

This grant will allow the Institute of Statistics and Decision Sciences
(ISDS) at Duke University to purchase equipment for a high-speed
computing cluster which will be dedicated to support research in
computational statistical sciences. It will be used for five projects
specifically directed at developing statistical methodology for complex,
high-dimensional hierarchical models using distributed computing
environments. Specific research problems involve sequential importance
sampling in latent variable models, combinatorial search for data mining
applications, adaptive stochastic search for high dimensional model
spaces, multivariate nonparametric function estimation, and multivariate
spatial-temporal modeling. These problems, which are typical of
applications in many scientific disciplines, require substantial
computational power, in both speed and memory, and require development of
new methodology for efficient implementations in modern distributed
computing environments.

Modern statistical methodology has allowed researchers to propose more
complex and realistic models for many scientific problems, however,
powerful computing environments and sutiable methodology are necessary
to make progress as larger datasets become available. This grant will
allow the Institute of Statistics and Decision Sciences (ISDS) at Duke
University to purchase a high-speed computing cluster, dedicated to
support research in computational statistical sciences. Projects
include spatio-temporal models to integrate information at multiple
levels, with applications in climate change and ecology, new classes of
models for identifying protein biomarkers for early cancer detection,
novel algorithms for exploring high-dimensional collections of models
and combining them, new techniques for modern data mining, and efficient
methodology for sequential analysis of data collected over time. These
are all areas at the forefront of statistics with broad applicability to
widespread problems in the statistics, science and beyond. The proposed
computing system will be both extensible and upgradeable. Serving
initially the five projects, it will also provide for future expansion
as these projects evolve and generate new directions in collaborative
research involving the primary investigators. The proposed research
will have significant immediate impact on education through involvement
of Ph.D. students and postdoctoral researchers directly in the proposed
research, and incorporation of results into graduate courses at Duke
University. Results will be disseminated to the statistical and broader
scientific communities via software distributed on the web, direct collaboration
with researchers in other disciplines, conference presentations, and
papers to be published in academic journals.